Entity-Relationship Design of Information Systems (Computer and Information Science)

This research extends the principal investigator's work in developing new formal analyses of the assumptions and benefits of the Entity-Relationship approach to database modeling. The planned work also develops methods for the design of the logical structure of the database, which is an important part of any modern information system. A new goal is to develop translations of the entity-relationship model onto the better-known Relational Database model. The resulting (entity-relationship based) design system will enforce the properties of well-behaved, reliable relational database schema, by interface with a graphical, entity-relationship representation of the underlying information system structues. The significance of this project lies in its contribution to both the theory and practice of the logical design of robust database systems, which can incorporate knowledge both flexibly and efficiently.